Marymount University S-STEM Scholarships

Through its S-STEM Scholarships program, Marymount University is:

1. Recruiting and maintaining an S-STEM cohort of approximately 20 students who have a demonstrated financial need and are interested and capable of majoring in the STEM disciplines of biology, mathematics and information technology/computer science.
2. Providing the scholarship recipients with an active leaning community engaged in scholarly and social activities in order to increase retention and STEM career-awareness of the students. The learning community includes monthly lunches with STEM faculty, field trips to local STEM industries, an interdisciplinary seminar series, Supplemental Instruction in key courses, and service learning opportunities through tutoring in mathematics or science for local K-12 students. Through the interdisciplinary seminars, the scholarship recipients are introduced to a variety of traditional and nontraditional STEM career options while coming to understand the interrelationships of biology, mathematics and information technology/computer science and the importance of each in the study of the other.
3. Providing opportunities for scholarship recipients to learn of the many career options available to STEM majors through interactions with potential future employers in the Washington, DC area.
4. Providing encouragement for S-STEM students to participate in STEM research programs.
5. Providing career counseling and graduate school preparation to help students understand their options and make wise professional decisions.